Elementary Particle Physics Using High Energy Accelerators

This grant covers experimental Elementary Particle Physics Research by a large group at the University of Washington in collaboration with other NSF and DOE supported scientists. The group will continue studying the detailed predictions of the Standard Model of Quarks and Leptons. They have a broad program studying the production and decays of the charmed quark, the heaviest lepton, the tau lepton, and the heaviest boson, the Z0 neutral boson. They also collaborate on studies of very high energy cosmic rays.